U.S.-Mexico Cooperative Research: Simulation Based Sequential Design: Species Diversity

0203207
Mueller

This U.S.-Mexico award will support Dr. Peter Mueller of the University of Texas M.D. Anderson Cancer Center, in a research collaboration with Dr. Andres Christen of CIMAT in Guanajuato, Mexico. The researchers intend to work on sequential design approaches in the context of sampling designs for estimating species diversity and for inference about areas of high habitat potential. Appropriate probability models for these applications will involve optimal sequential design strategies, using a hybrid strategy of reduced action spaces and Monte Carlo simulations.

The collaborators will bring complementary skills to the project with the Mexican collaborators contributing expertise in inference for biodiversity, and the U.S. collaborators contributing research focus and experience in simulation-based optimal Bayesian design. Both investigators also have extensive research experience in Bayesian data analysis, modeling, and simulation. The involvement of graduate students will broaden the basis of the collaboration.